Instrumentation for Control Systems Lab

The control systems curriculum sequence is being upgraded by enhancing the related project laboratories. Workstations, d.c. motors and appropriate instrumentation are being installed to permit the analysis and design of both digital and analog control sytems. This project is being matched by an amount equal to the award.